CyberCorps 2005 Symposium

This project is supporting the annual Cyber Corps Symposium, which brings together the current scholarship students, faculty at participating institutions, and government officials for a four-day event. This symposium provides a mechanism for building community across the programs, helping to develop that strong cadre of IA programs. In addition, the symposium provides opportunities for students, faculty, and agency officials to interact regarding myriad IA topics, including the future of IA in the government, curricular matters, and employment opportunities. An important aspect of the symposium will be a series of invited talks and panels regarding technical, legal, and policy aspects of IA. The symposium also provides networking opportunities for faculty at participating SFS institutions and for representatives of federal agencies. These interactions improve faculty's understanding of the government's needs and challenges, which in turn helps them develop curricula that better address those needs.